Autonomous Underwater Vehicle Measurements of Arctic Change due to Atlantic Inflow

This project will develop an Autonomous Underwater Vehicle (AUV) for use under the Arctic pack ice. The AUV will be equipped with oceanographic instruments that will be used to collect data along a chosen bathymetric contour. The instrument will send up data packages in a pod that melts through the ice and telemeters the data through a satellite to a base station. Most of the development costs have been borne by National Oceanographic Partnerships Program. This project serves as a proof-of-concept testing of the instrument package developed with that funding. The scientific application of the measurement system is to collect data to study the warm Atlantic layer incursion into the Arctic that has caused a fundamental change in Arctic circulation and may be linked to a larger Arctic warming. The AUV will provide a means for collecting data remotely and quickly under the pack ice where other systems require human intervention at a much greater logistical cost and risk in a very hazardous environment.